600 MHz Solid-State NMR Spectrometer

9907840

Abstract

This grant is being used for the purchase of a 600 MHz wide bore NMR spectrometer for solid state NMR of biological macromolecules and macromolecular assemblies. Structures to be studied include membrane proteins, sub-cellular assemblies and organelles. Processes to be studied include protein folding, structural analysis of catalysis, biopolymers and other chemical systems. The instrument is being installed in the NMR facility at Stoney Brook that is being created through the new structural biology initiative. The major users will focus on problems of membranes, membrane protein structure and signal transduction, collaborating with research groups involved in the study of these processes at Stony Brook.